Mathematical Sciences: Research Experiences for Undergraduates - Inverse Problems: Mathematics and Engineering

This REU site award provides support for six undergraduate researchers in mathematics and engineering. Research will be on inverse problems in mathematics with applications in engineering. The program will run for eight weeks. Students will also attend a special seminar dealing with technical writing and scientific presentations.